Planning Grant for I/UCRC of Thermal Processing Technology

Thermal processing is a fundamental part of almost all materials manufacturing processes. Thermal processing encompasses a broad range of processes in which heating or cooling are used and during which process the material may undergo some change in internal structure and/or external geometry. The thermal processing industry faces a number of challenges to continued growth and international competitiveness as outlined in a technology road map for the industry, "The 1999 R&D Plan for Heat Treating" published by the Heat Treat Society. This planning grant is to support activities aimed at determining the feasibility of establishing an I/UCRC focused on thermal processing technology. The activities will culminate in a planning meeting with industry to develop a research agenda and commitments for membership.